Conference Proposal: CRM Theme Semester on Combinatorial Optimization (June 2006 - December 2006)

The Centre de Recherches Mathematiques in Montreal (CRM) is organizing a
Theme Semester on Combinatorial Optimization that will include a NATO
Advanced Study Institute and five workshops. Broadly speaking,
combinatorial optimization is the study of optimization problems in
which there are a finite (but usually very large) number of potential
solutions, also called feasible solutions. These are not
enumerated but rather defined implicitly by constraints, i.e., linear or
nonlinear relations. For instance, the famous traveling salesman problem
(TSP) consists of selecting the least expensive tour of a given set of
locations, and the minimum spanning tree problem (MST) of selecting the
least expensive network connecting given sites. Combinatorial
optimization has been applied to many fields of huge practical import,
such as transport scheduling, telecommunications planning and circuit
design (where problems similar to the TSP, among others, must be solved
routinely). Since most combinatorial optimization problems are very
difficult to solve, researchers have, on the one hand, improved the
time-consuming algorithms that compute optimal solutions of difficult
problems such as the TSP, and on the other, designed efficient
algorithms that compute near-optimal solutions (also called heuristic
solutions). Two of the workshops will address the design of such
algorithms (from different angles). The three others will address the
computation of polyhedra related to optimization, the use of
optimization in data mining, and the design of computer and
communication networks such as the Internet.